Time Complexity Limits for Shared-Memory Synchronization

Through the years, much work has been done on synchronization algorithms for
shared-memory multiprocessors. In contrast, very little work has been done on
time-complexity lower bounds that express fundamental limits to which such
algorithms are subject. Given the vastness of the literature on
synchronization, this may seem somewhat surprising. However, there is a
simple explanation: while devising a useful time complexity measure for
sequential algorithms is straightforward, it is not altogether obvious how to
do this in a meaningful way for synchronization algorithms. Indeed, in most
synchronization algorithms, processes may wait unboundedly; thus, if one merely
applies the standard sequential measure of counting all operations to such an
algorithm, then its time complexity is unbounded. This is not a very useful
statistic.

Recently, some progress has been made towards defining useful time complexity
measures. One such measure is the the remote memory references (RMR) measure.
Under the RMR measure, a distinction is made between local and remote accesses
of shared memory. An access is local if it does not require a traversal of
the global interconnect between processors and shared memory, and is
remote otherwise. The RMR measure was motived by research on "local-spin"
synchronization algorithms. In such algorithms, processes are structured so
that all busy waiting is on variables cached locally or stored in a local
memory module.

When studying synchronization problems, the following key question arises:
Using some class C of synchronization primitives, what is the most
efficient possible algorithm for solving a given synchronization problem?
It is this basic question to which this research project is directed, where
"efficiency" is defined as time complexity under the RMR measure. The
research agenda includes work on both algorithms and lower bounds. Based
on such work, rankings of synchronization primitives are being developed
that order synchronization primitives according to the time complexity
(worst-case, average-case, amortized) with which various synchronization
problems can be solved. Such rankings should be of value to computer
architects. Indeed, preliminary research has shown that a variety of
fetch-and-phi primitives are more powerful than comparison primitives for
implementing blocking synchronization mechanisms. This stands in contrast
to the fact that compare-and-swap and related comparison primitives are
commonly regarded to be among the most powerful and useful of primitives,
and are widely supported in modern machines.